Statistical Signal Processing for Fractional Brownian Motions

This project is concerned with the problem of statistical signal processing for signal and noise processes modeled as fractional Brownian motions. Fractional Brownian motions provide analytical models for random processes that exhibit 1/f-type spectral behavior and thus that have unexpectedly strong long-term serial dependencies. This type of behavior is poorly modeled by the rational models that are commonly used in the analysis of statistical signal processing problems. Since many physical phenomena exhibit this type of behavior (including, among many other examples, flicker noise in oscillators), it is of interest to study the properties of these processes in the context of signal processing functions. Several specific aspects of this problem that will be considered for these models include signal detection, parameter estimation, and signal estimation; stochastic control; and information theoretic issues. The principal goal of this study is to establish the general methodology and performance expectations for processing of signal or noise phenomena that can be modeled in this way.